A Portable Language for Audio Processing and Psychoacoustic Research (Computer and Information Science)

This is a project to develop a powerful yet intuitively comprehensible language for the generation and processing of sounds. The goal is to provide flexible control over the most comprehensive set of audiocomputational methods possible. The language is to be efficiently embedded in a UNIX/C processing environment for maximum portability to using laboratories. The personal computing workstation and a burgeoning industry in musical audio synthesizers have already had an impact on research in audio processing, psychoacoustics, human-computer interaction, and audio cognition. Until now, however, the impact has been limited by reliance on computationally simple models of sound production, lacking both the diversity of our cultural aural experience and the methods of control that would support its systematic investigation. If this project is successful, every investigator will be able to explore the most subtle nuances of sound and audition.